Interactive Instrumentation for a Materials Engineering Laboratory

This project addresses the upgrade of the the Universal Testing Machine (UTM), a key piece of equipment in the materials engineering laboratory, by interfacing with computers and automating the data acquisition process. As a result, undergraduate students obtain a better understanding of material behavior and testing techniques.